Building an International Research Network: Graduate Student Involvement in a Worldwide Study of the Influence of Globalization on Cooperation

Much research exists discussing how globalization influences societies at the aggregate level, however we have no clear understanding of how this process influences individuals in their everyday social and economic interactions with those around them in their locality, their country, and the world. Our research goal is to address the fundamental question of whether and how an individual' participation in the global system influences the propensity to cooperate to provide public goods at the local, national, and global levels.

Our research methodology is experimental. We replicate the same interactions among and between citizens in six countries: Argentina, Great Britain, Iran, Russia, South Africa and the United States. Participants from each country will represent varying degrees of participation in the global system and the research sample will be balanced across the categories of age, gender, and social-economic status. Participants will engage in a series of experimental interactions intended to make salient for them the tension between cooperating to increase overall local welfare, or cooperating to increase global welfare. This new award supplements our earlier experimental award to enhance the participation of graduate students in this project. The work involves both American graduate students and those from the other countries included in the initial testing of the research procedures and protocols.